NGS: GrADS: Efficient Script-Based Application Development for Networked High Performance Computing Environments

Title: NGS: Efficient Script-Based Application Development for Networked High Performance Computing Environments.

This action will continue the research on the GrADS technologies for building Grid applications and to expand their applicability to new classes of applications. In particular, the work will concentrate on workflow- style applications from mesoscale weather forecasting and computational biology. In addition, it will explore enhanced technologies for automatic construction of grid applications from high-level specifications, along with new mechanisms for performance monitoring and rescheduling. The results will be demonstrated on new versions of the two GrADS testbeds.